3-D Mapping of Attenuation in the Upper Mantle Using Mantle Waves

This research is to extend previous development of preliminary global maps of mantle Rayleigh wave attenuation at different periods, showing evidence for the existence of a strong attenuation in the depth range corresponding to the upper mantle low Q (high attenuation) zone. Data will be taken from 20 Geoscope (French) stations and several IRIS (NSF-sponsored) stations. The inversion will be performed in two ways: attenuation maps alone, and simultaneous inversion of attenuation and velocity maps. The resulting 3-dimensional models will provide new information on upper mantle temperature and viscosity distributions. The goal is to contribute new insight into convective processes in the upper mantle.